Mathematical Sciences: Presidential Young Investigator Award

This research program is concerned with the general area of numerical solutions for partial differential equations. At this time the program is focussed in three areas within the general field: 1. Vortex methods. 2. Domain decomposition. 3. Random choice method for flows in porous media. The research results will have applications in fluid engineering and petroleum engineering.